Complex Interstellar Molecules: Their Synthesis and Utility as Probes of Star Formation

Motivated by recent observational findings, this research project will investigate computationally the formation of interstellar complex organic molecules (COMs). Results from the study will allow astronomers to understand how COMs are formed in interstellar clouds and the level of molecular complexity that builds under the extreme conditions of interstellar space. The project will train graduate and undergraduate students in advanced techniques of computational astrochemical research, and it will include outreach activities to enhance the visibility of astrochemistry in the broader scientific community and the public.

The research team will investigate a range of new gas-phase and solid-phase chemical processes and generate rates and theoretical formulations for incorporation into large-scale astrochemical networks. The formation mechanisms investigated will enable quantitative interpretation of high angular resolution studies of molecules in interstellar clouds and star-forming regions, allowing competing ideas on the formation of COMs to be tested by means of unified, comprehensive models. Results from the project would also enable effective exploitation of astronomical facilities built with significant public investment.